International Workshop on Theoretical and Algorithmic Aspects of Sensor, Ad Hoc Wireless, and Peer-to-Peer Networks

In recent years, mobile computing has enjoyed a tremendous rise
in popularity and has been used in various sectors of the society.
Sensor networks, Ad hoc wireless networks, and Peer-to-peer networks
(simply called SAP networks) play a central role in the development of
emerging network paradigms. These three networks are characterized by
their ad hoc nature without infrastructure or centralized administration.
Unlike infrastructured networks, including cellular networks, where nodes
interact through a centralized base station, nodes in an SAP network
interact in a peer-to-peer fashion. As a result of the mobility (including
join/leave the network) of their nodes, SAP networks are characterized by
dynamically changing topologies. The applications of SAP networks range
from civilian (file-sharing) to disaster recovery (search-and-rescue),
and military (battlefield).

The International Workshop on Theoretical and Algorithmic Aspects of Sensor,
Ad hoc wireless, and Peer-to-peer Networks brings an international forum on
the recent development on theoretical and algorithmic aspects of three related
fields. The workshop seeks to bring together different research disciplines
to initiate a comprehensive technical discussion on theoretical and
algorithmic approaches to three related fields. The objective of the
workshop is to identify several common theoretical and algorithmic approaches
that can address issues related to SAP networks. The central topic of the
workshop revolves around the following two questions: What are the central
technical issues in SAP networks? What are the possible solutions/tools
available to address these issues? After identifying areas for research,
the next focus of this workshop is on future research challenges. This
workshop seeks a broad impact through a mix of theoretical researchers and
practitioners (from local industry) and by helping to stimulate collaborations. We believe that theoretical progress on the research topic in the workshop will
have a long-term impact on SAP networks. A major theme of the workshop
is the integration of research and education. It is addressed through
participation of graduate students, especially from regional universities
in South Florida, which have a high percentage of Hispanic and Black students.